Mighty - Midwest Graph Theory Conference

A two-day meeting, the Midwest Graph Theory Conference (abbreviated as the Mighty Conference), will be held October 28-29, 2005 at Middle Tennessee State University. The topics of the meeting will include many facets of graph theory, such as extremal problems in graph and hypergraph theory, topological graph theory, colorings, probabilistic combinatorics, matroid theory.

This conference brings together researchers in graph theory and combinatorics, college faculty, students, industrial mathematicians, and computer scientists in an environment conducive to the exchange of ideas, leading to successful collaborative research. Efforts will be made to include junior faculty as well as faculty and students from smaller institutions throughout the region